A Proposed Research Site for CELDi: A Multi-Campus I/UCRC

The Industry/University Cooperative Research Center for Engineering Logistics and Distribution (CELDi) site at Lehigh University will be closely affiliated with a joint interdisciplinary center, the Center for Value Chain Research. The research site brings together faculty from Industrial and Systems Engineering and the College of Business and Economics with common interests in supply chain management, management information systems, operations research, optimization, game theory, computing, management, and marketing. A particular emphasis of the research site is Value Chain Planning and Development in high value manufacturing and pharmaceutical industries. This new research site will adhere to the existing policies and procedures established by CELDi.